Workshop to Revise 'Teaching Chemistry to Students with Disabilities'

The Chemistry Division will support a three day workshop, to be held at Arizona State University, to update and revise the manual "Teaching Chemistry to Students with Disabilities." The American Chemical Society will publish the revised manual and it will be distributed by the ACS and the American Association for the Advancement of Science.

The revised manual will consist of an overview of current and best practices for participation of k-12, undergraduate and graduate students with visual, hearing, motor and learning disabilities in instructional programs in chemistry. The manual will cover safety, laboratory modifications, lecture and testing strategies, use of computers in instruction, instructional materials and rules and regulations such as the Americans with Disabilities Act.

Workshop participants will be drawn from those with established reputations in teaching chemistry to students with disabilities at the k-12 through university levels as well as graduate and undergraduate students.